Laboratory Studies of the Impact of Physicochemical Processing on the Optical Properties of Mineral Dust Aerosol

This project is an experimental laboratory investigation of the impacts of atmospheric aging on the optical properties of components of mineral dust particles as functions of spectral wavelength, particle size, shape and composition. The absorption and scattering of light by various classes of mineral dust including metal oxides, carbonates, and clays will be measured for wavelengths from 0.3 to 15 micrometers. The particles will be exposed to various physical and chemical processes designed to simulate those occurring in the atmosphere. Theoretical treatments of light-particle interactions will be employed to the fresh and aged particles in an effort to derive formulas that can be used for actual atmospheric mineral dust aerosol.

This fundamental information will improve the understanding of the impact of mineral dust on the radiation budget of the earth's atmosphere. This can lead to better predictions of the impacts of perturbations to the earth's climate system. This project will have significant student involvement, including direct support of a graduate student and postdoctoral fellow.